RUI: Stability of Spacetimes with Mild Singularities or Cauchy Horizons

Professor Konkowski plans to continue her mathematical study of mild singularities and Cauchy horizons in spacetime models. Mild singularities include quasiregular and nonscalar curvature singularities. In the former, particle paths may end with no accompanying physical catastrophes, while in the latter, some particles moving near the singularity will feel infinite tidal forces, but not all do. In most cases the spacetime models examined satisfy Einstein's equations. It is important to study relativistic spacetimes with mild singularities, together with the behavior of particles and fields in these spacetimes, in order to better understand the nature of mild singularities. The nature of singularities which occur in the classical solutions of Einstein's equations is largely an unexplored area. The singularity theorems which predict the occurrence of singularities in broad classes of spacetimes give little clue to their nature. In order to better understand them, it is important not only to study their mathematical structure but to study the behavior of physical processes in singular spacetimes. Such a study will lead to a fuller understanding of the relevance of spacetimes with different types of singularities both within the mathematical structure of Einstein's equation and within the physical universe.